Innovative and Strategic Concepts in Advanced Building Automation

9321346 Kangari The objective of this research is to establish an innovative and creative engineering solution to the existing construction by exploring new ideas and developing a generic framework for utilization of automation technology in flexible construction of an automated building. This allows for the identification of major systems variables which must be considered. The scope of the research is limited to: 1) Development and investigation of innovative concepts for automated building construction materials transfer operations, 2) Development and investigation of new concepts for flexible automated building construction resources.